Development and Testing of a Wave-Driven Artificial Upwelling Device

This project involves the conceptual formulation, design, fabrication, and testing of a wave-driven artificial upwelling device that can draw nutrient-rich deep ocean water (DOW) to the ocean surface as a precursor to commercially-viable, open-ocean mariculture. The device will ba a 1:20 scale model of the prototype that will eventually be constructed and deployed in the open ocean in subsequent research and development efforts. This project is part of a larger research effort of the University of Hawaii, the ultimate goal of which is to develop the technology for open ocean mariculture. The research task of this project will be conducted in three phases. The first phase includes the design of hydraulic experiments and the construction of the hydraulic model. A laboratory-scale, wave-driven artificial upwelling device will be designed and fabricated at the University of Hawaii's Look Laboratory. Wave energy conversion theories will be examined, and modifications of existing formulas may be made to make them compatible with the special physical environment conditions related to artificial upwelling. A series of hydraulic modeling experiments will then be designed based on theoretical derivation to investigate the upwelling depths and flow rates as functions of various design parameters. The second phase covers the actual hydraulic modeling experiments. In this phase, the calibration of the hydraulic model and instrumentation will first be conducted to test the hydrodynamic performance of the device and make necessary modifications to the original design. The final phase is the analysis of experimental data and the design of a prototype wave-driven artificial upwelling device. Experimental data will be analyzed and compared with the theoretical results.